Research Initiation Award: Investigation of the Effects of Dissolved Oxygen and Dissolved Carbon Dioxide on Embryogenesis and the Competence for Embryogenesis

Narrative: The somatic embryogenesis of carrots will be used as a model to quantify the effects of dissolved oxygen and dissolved carbon dioxide on undifferentiated cell growth and embryogenesis. This model has been selected because extensive information regarding somatic embryogenesis of carrots already exists in the literature. Embryos are thought to originate from single cells, or a small number of cells associated with a cluster of cells. After induction, the embryos progress through several stages of development. Recognition of the various stages of embryogenesis and plantlet regeneration will comprise the major analytical procedures for assessing embryogenesis for this project. Gases of various composition will be used in shake flask studies and the information will then be transferred to the more industrially applicable system of an agitated, scalable reactor. The oxygen and carbon dioxide effects will be studied to develop a bioreactor that can be operated at controlled levels of the gaseous components. This development will provide a valuable tool for further investigations that will require the cultivation of embryos under well defined nutritional conditions.